Research Experience for Undergraduates in Physics

9424140 Thoennessen The support of the "Research Experiences for Undergraduates Site" at Michigan State University will be continued. This program recruits students nationally, and gives them the opportunity to contribute to a number of leading research activities. In addition, other professional contacts and attendance at scientific meetings lets the participants participate in all aspects of research. ***